CAREER: Learning in the Woods - Decadal Climate, Water Supply, and Fire Frequency in the Great Basin

This award funds the 'Learning in the Woods' project which aims to use a multi-faceted approach to integrate research and education on environmental change at interannual to interdecadal scales in the Great Basin, where rapid population growth is testing the vulnerability of natural and human-dominated ecosystems to climatic fluctuations.

The primary goal of the research is to obtain a baseline representation, over the last millennium, of interannual to interdecadal changes in water supply and fire regime. The spatial and temporal patterns of wildfire will be analyzed in the context of climatic fluctuations. Tree-ring chronologies from moisture-sensitive species will be developed for selected watersheds, including the Truckee, Carson, Walker, Owens, and Humboldt River Basins. The annual to seasonal resolution of such natural archives allows for accurate calibration with instrumental records, so that multi-century long proxy series of annual to seasonal precipitation and stream flow can be obtained.

In addition, a four-day science experience for K-12 teachers and students will be held every year, and aimed at Hispanic middle- and high-school students in Nevada.

The specific scientific and educational objectives include testing the spatial coherence of decadal-scale variability in Great Basin hydroclimatology, determining the amplitude of interannual to interdecadal fluctuations of freshwater input to selected watersheds of the Intermountain West over the past millennium, examining spatial and temporal changes of fire regime in connection to local and regional climate at annual resolution for several centuries, educating new generations on the dynamic relationships that exist both in space and in time between climate and surface processes such as precipitation, runoff, and wildfire, developing a web-based information system showing the spatial variability of precipitation, stream flow, and fire regime over Great Basin watersheds for the period of instrumental observations and for the period of proxy climatic records, and providing under-represented groups an incentive, early in their educational careers, for pursuing science careers.